Interfacial Mechanisms Driving Calcium Phosphate Precipitation at Electrified Interfaces: Interplay of Potential, Polymer Additives, Surface Chemistry, and Dynamics

Precipitation is the process in which a dissolved material forms solid crystals and separates from the liquid solution. This process can be accelerated by applying an electric field or by adding other chemicals. Combining these two effects may provide more precise control over crystallization, which can improve product quality, process efficiency, yield, and reliability. This project investigates how crystals form when both electrical and chemical effects are combined. The work focuses on forming calcium phosphate (CaP) crystals. CaP has many potential uses in CaP (bio)sensors for aqueous-based and templates for medical drug delivery. The project outcomes are likely to apply to related chemical processes, such as the selective separation of critical materials like rare earth elements. Therefore, this research serves national interests by promoting the progress of science, while strengthening U.S. manufacturing competitiveness, chemical production, and resource sustainability. The project also contributes to U.S. workforce development by supporting the training of graduate students.

This project addresses critical knowledge gaps in the understanding of electrochemically induced precipitation of CaP by integrating principles from interfacial science, electrochemistry, and crystallization. Supported by preliminary results, the central hypothesis challenges the conventional view that the pH alone controls the process, proposing instead that water-soluble polymer additives can modify the local interfacial environment, and thereby influence nucleation, growth and phase stabilization on an electrically biased surface. Furthermore, it is proposed that polymer additives can introduce dynamic control over structural organization and properties, and therefore, they introduce an additional level of tunability in the (electro)chemical process. The research couples in situ atomic force microscopy, quartz crystal microbalance, surface-enhanced infrared absorption spectroscopy and electrochemical impedance spectroscopy with kinetics modeling, and ex situ materials characterization, to understand underlying mechanisms. The project also delivers a kinetics model to describe precipitation and infer physical and chemical characteristics of the process. This work is transformative in several ways. It provides new fundamental insights into nucleation and early-stage growth by establishing their relationship with the interfacial composition determined by the coupling between surface potential, surface chemistry and polymer additives. It elucidates growth mechanisms that result from the interplay between polymer composition and electrochemical conditions; and uncovers the dynamics of interfacial control and the interactions by which polymer additives can modulate structure-property relationships. Overall, this project may drive a fundamental paradigm shift in the understanding and control of precipitation and crystallization at electrified interfaces, with implications for the optimization of existing chemical processes and the development of new separation strategies of critical materials.